DISSERTATION RESEARCH: Phylogenetics of the Lamprologini (Teleostei: Cichlidae) Based on Morphology and Molecules

Lamprologines, a model group for studying the evolution and speciation of
African Great Lake cichlids, have been included in several recent molecular studies.
However, these studies have used only one or two genes, and have included fewer than a
third of lamprologine species, while neglecting the diversity of riverine cichlids in West
and Central Africa. None have employed morphology. This study will thoroughly
investigate lamprologine phylogenetics using both morphology and DNA sequences from
several mitochondrial and nuclear genes, exhaustively sampling both Congo River and
Lake Tanganyika lamprologines and diverse outgroups, including other lacustrine
lineages and a complete sampling of riverine cichlids from West and Central Africa. By
resolving the placement of lamprologines within the African cichlid radiation, this study
will greatly improve knowledge of cichlid phylogeny. Within lamprologines, it will shed
light on intriguing evolutionary questions, including the number and nature of transitions
between rivers and lakes, the evolution of shell-dwelling and concomitant miniturization,
and the extent of morphological convergence within the group. In addition to improving
our understanding of speciation in large tropical lakes, these new phylogenetic insights
will assist policy makers in planning conservation strategies.